Minority Graduate Student Travel Award

This action funds a Minority Graduate Student Travel Award for attendance at a professional meeting. The student will present a paper on her research on intracellular signaling and insulin action, and she will meet with potential mentors in anticipation of applying for a Minority Postdoctoral Research Fellowship.